CISE Educational Infrastructure: An Environment for Educational Delivery and Development for Computing

This award is for the development of an educational delivery platform to support multimedia instruction. Multiple presentation methods will be supported including textual description with annotation capabilities, dynamic visualizations and animations, lecture-style slides and overlays, video windows for aids such as instructor's explanations, and audio capabilities. The software system and other materials developed will be disseminated through anonymous ftp, and presentations at professional meetings. Georgia Tech is proposing to develop a system infrastructure for a delivery platform for multimedia materials about computer science data structures, algorithms, and methodologies. The platform will support cooperative work, allowing students and instructors to interact with the presentations and save annotations for others to view and hear. The software system will be portable and will be available to any other interested institutions.